NGS: Computational Vortals for Next-Generation Scalable Computing

EIA-0103594 Tomasz Haupt Mississippi State University Computational Vortals for Next Generation Scalable Computing

Computational Power constantly is opening new opportunities for numerical simulations, in turn opening opportunities for new science. This computational power is expected to be a low cost alternative for design and validation, boosting efficiency of manufacturing, and be a reliable source of forecast (e.g., weather earthquakes. the stock market, to name just a few domains), as well as all the other claimed and realized advantages for academic computing. This constant demand for faster and faster compute servers drives vendors to introduce more and more sophisticated; scalable architectures including scalable interconnects.

The PI's will develop high-level user directed assists to enable application programs to exploit cluster-computing resources; this will connect application level resource requirements with lower-level scheduler and middleware resources. The work will advance the usability of clusters by a significant class of applications.